CAREER: Mathematical and Computational Fundamentals of Visual Appearance for Computer Graphics

Much of human perception is driven by the visual appearance of the
world. People are captivated by the effects of natural lighting and
shading patterns, such as the soft shadows from the leaves of a tree
in skylight, the glints of sunlight in ocean waves, or the shiny
reflections from a velvet cushion. In computer graphics, it is
important to be able to accurately reproduce these appearance effects,
to create realistic images for applications like video games, vehicle
and flight simulators, or architectural design of interior spaces.
However, it is still very difficult to accurately model complex
illumination and reflection effects in interactive applications like
games, in image-based rendering applications like e-commerce, or in
computer vision applications like face recognition. In the past, the
above applications have been addressed separately, by devising
particular algorithms for specific problems. In this project, the
research focuses on the mathematical and computational fundamentals of
visual appearance, seeking to understand the intrinsic computational
structure of illumination, reflection and shadowing, and develop a
unified approach to many problems in graphics and vision.

The main thrust of the research will be to develop appropriate
mathematical representations for appearance, along with computational
algorithms and signal-processing techniques such as Clebsch-Gordan
expansions, wavelet methods with triple product expansions, and radial
basis functions. A major advantage of this approach is that the same
representations, analysis and computation tools can then be applied to
many application domains, such as real-time and image-based rendering,
Monte Carlo sampling and lighting-insensitive recognition. This
research philosophy builds on the investigator's dissertation, where
he developed a signal-processing framework for reflection, leading to
new frequency domain algorithms for both forward and inverse rendering.